Workshop on Frontiers in Electronics (WOFE-09) To be Held in Rincon, Puerto Rico on December 13-16, 2009

The planned Workshop WOFE-09 is a sequel to WOFE-97 held January 1997 in Puerto de La Cruz, Tenerife, Spain, WOFE-99 held May 31 - June 4 in Villard de Lans, France, WOFE-2002 in St. Croix, Virgin Islands, and WOFE-04 held on December 18-22 in Aruba, and WOFE-07 held in Cozumel, Mexico

The objective of the workshop is to bring together leading scientists and engineers who are at the frontiers of electronic device and circuit research and development. Ultra low power digital electronics, microwave power circuits, and optoelectronics have become the foundation of today's electronics technology. Yet, they emerged from traditionally separated fields and are still largely pursued by specialists trained in different areas.

The intellectual merit of the proposed workshop will be in facilitating of ideas and information in cutting edge technologies at frontiers of research and in reviewing the most recent and exciting breakthroughs in the nanoelectronics and microelectronics fields, the underlying physical mechanisms that link recent and expected advancements, and in exchanging views on future trends and directions, the market pulls and the necessary policy and infrastructure changes.

The broader impacts will be in publishing Proceedings that will included best paper presented at the WOFE-09, peer-reviewed and edited with a detailed editorial Introduction and in promoting involving graduate students and younger scientists. In the past, some of the previous WOFE Proceedings were listed as Best Sellers by Word Scientific, Inc.